The Design and Synthesis of Artificial Proton Channels

This RPG in the Organic Synthesis Program to Professor Akerfeldt of Rutgers University will be used to design and synthesize artificial proton channels. In this work the PI will prepare a number of specific peptide sequences which will self assemble in a membrane and in an electric field to form proton channels. These model assemblies may be characterized and used to correlate with natural and uncharacterized systems. The objective is to try several different peptide sequences to determine how they assemble into conducting pores. Proton or ion channels regulate the flux of ions across membrane barriers. This is critical for cell regulation, cellular communication and nerve transmission. The synthesis and characterization of models of these systems will provide basic knowledge for extrapolation to the natural systems which at present are too complicated to characterize.